GOALI: Aerosol Manufacture of Nanoparticles and Selected Applications

Abstract
CTS-9978926
M.F. Becker, J.R. Brock, and J.W. Keto, UT - Austin, H.D. Glicksman, DuPont

Fundamental understanding and modeling of the "laser ablation of microparticles" process and the extension of the process to the collection of unagglomerated nanoparticles on dry or wet surfaces is proposed. Nanoparticles of 5 to15 nm with narrow size distribution composed of various materials can be obtained with the suggested approach at large production rates. Modeling and experimental investigation will focus on nanoparticle nucleation and growth process, evaporation of materials by laser ablation, chemical changes in nanoparticles by varying the surrounding gas, and in situ particle size electrostatic selection. This is a multidisciplinary collaborative university-industry project (GOALI) between the University of Texas at Austin and DuPont Polymer and Electronic Materials Co. for the generation, characterization and use of nanoparticles with immediate application for thick film pastes. If successful, the research will advance understanding of ablation and nucleation processes, and will have application to generation of new materials and structures of importance in electronics, sensors and optical devices.